Doctoral Dissertation Research in DRMS: Global Climate Change: Risk Perceptions and Behavior

This project will investigate the roles of affective imagery and cultural
worldviews in risk perception, decision-making and behavior, using global
climate change as a case study. Past research has focused on the role of
cognitive factors like knowledge, mental models and general environmental
beliefs in risk perceptions of climate change. Recent research, however, has
also begun to focus on the role of affective factors. This project will
develop and test affective image analysis as an innovative method to study
public risk perceptions along both cognitive and affective dimensions.
Additionally, cultural theorists argue that cultural worldviews are also
important factors and need to be included as explanatory variables. This
project will operationalize and test the predictions of cultural theory.
Finally, many researchers assume that risk perceptions and behaviors
correlate, yet little focused research has been done. This research will
test this assumption, using climate change as a case study.

This project also addresses several applied questions: Does the American
public perceive global climate change as a serious risk? What specifically
do they fear about it? Do these risk perceptions translate into personal
actions and/or support for mitigation policies? This research will
contribute to the continuing discussion on global climate change, as
scientists and policymakers attempt to find scientifically appropriate and
publicly acceptable solutions to this global problem.